Collaborative Research: Translating Prosody in an English/Chinese Language Tutoring System

Prosody is an integral part of human communication, but one that
second language (L2) learners rarely learn. Topic shifts, contrastive
focus, and even simple question/statement distinctions, cannot be
recognized or produced in many languages without an understanding of
their prosody. However, 'translating' between the prosody of one
language and that of another is a little-studied phenomenon. This
research addresses the 'prosody translation' problem for Mandarin
Chinese and English L2 learners by identifying correspondences between
prosodic phenomena in each language that convey similar meanings. The
work is based on comparisons of L1 and L2 prosodic phenomena and the
meanings they convey. Computational models of prosodic variation
suitable for representing these phenomena in each language are
constructed from data collected in the laboratory, with results tested
on L1 and L2 subjects. The models are tested in an interactive
tutoring system which takes an adaptive, self-paced approach to
prosody tutoring. This system modifies training and testing examples
automatically by imcremental enhancement of distinctive prosodic
features in response to student performance. The success of the
system is evaluated via longitudinal studies of L2 students of both
languages to see whether the new techniques improve students' ability
to recognize and produce L2 prosodic variation. By providing a method
and computational support for prosody tutoring, this work will not
only enable students to attain more native-like fluency but it will
provide a model for training students in other pragmatic language
phenomena --- beyond learning the words and the syntax of a new
language.